Characterization of Single and Coupled Quantum Dots Using Far-Infrared Radiation

9707800 Snider A novel technique combining far infra-red spectroscopy and near-field scanning microscopy will be used to both investigate the electronic subband structure electrostatically-confined and self-assembled quantum dots, and to investigate the electronic coupling of these dots. Electronic coupling of dots is of profound importance in device applications. ***